RUI: MRI Acquisition of a Scanning Electron Microscope with Energy Dispersive X-Ray and C-Mode Scanning Acoustic Microscope for a Centralized Laboratory for Imaging and Metrology

This major research instrumentation (MRI) grant is submitted within the framework of
the Research in Undergraduate Institutions (RUI) program. The mission of this RUI
submission is the establishment of a Centralized Laboratory of Imaging and
Metrology (CLIM) at the Rochester Institute of Technology. The instrumentation
requested includes a scanning electron microscope (SEM) with energy dispersive X-ray
(EDX) capability and a C-Mode Scanning Acoustic Microscope that would greatly
enhance RIT's ability to conduct competitive undergraduate research.
Intellectual Merit: CLIM will build upon RIT's existing strengths in Semiconductor and
Microsystems fabrication and packaging to bridge the applied research gap between basic
research and product commercialization. The impact of the proposed research
instrumentation will be in the establishment of a strong research base for investigators
and undergraduates. A major component of the investigators vision involves
establishing the undergraduate research infrastructure required to (i) publish in refereed
journals by undergraduates, (ii) enhance RIT's credibility to funding agencies to secure
funding for undergraduate research, and (iii) provide a superior environment for
undergraduate education.
Various examples of research activity enabled by this equipment listed in the Project
Description section of this proposal include: photonic lightwave integrated circuits
fabrication, wafer bonding, microfluidic package analysis, packaging yield analysis, and
Silicon on Insulator substrate characterization. These diverse efforts share a common
need to characterize (i) material properties, (ii) process development, and (iii) failure
mechanisms. Nondestructive structural, and chemical analysis and nanometer-scale
imaging capability is fundamental to the success of the proposed research initiatives. The
scanning electron microscope, energy dispersive X-ray, and a C-Mode Scanning Acoustic
Microscope enable imaging, chemical analysis, and structural analysis, respectively.
Broader Impact: In the first year of this program alone, it is estimated that through
projects, classroom instruction, and research, 150 students will benefit from this
instrumentation. This equipment will be introduced immediately, as a centerpiece to
several classes, which include the following: EMCR 201 (Introduction to Microelectronic
Engineering), EMCR 221 (Introduction to Microlithography), EMCR 350 (IC
Technology), EMCR 564 (Microlithography Systems), EMCR 643 (Thin Film
Processing), EMCR 650 (IC Processing Laboratory), EMCR 680/690 (Senior Seminar
Research), ITFF 455 (Introduction to Surface Mount Electronics Packaging), ITFF 456
(Advanced Concepts in Electronics Packaging), and ITFF 457 (Electronics Packaging
Laboratory).
The research will be conducted by three faculty from RIT (S. L. Rommel-Microelectronic
Engineering, A.D. Raisanen-Semiconductor Microsystems Fabrication Laboratory, and
S.M. Ramkumar- Manufacturing Mechanical Engineering Technology and Packaging
Science) in the area of materials, process and failure characterization of microsystems
development and packaging. This project will foster collaboration between device and
packaging researchers at RIT to realize next-generation, high-performance microsystems.